SGER: Algorithm Design for Reconfiguration Problem in Optical Networks

The optical network is a promising high-speed backbone or transportation network that requires
an extremely caution in operations. The reconfiguration is one of the indispensable operations if a
virtual topology no longer serves a traffic demand which is changed over time.
We propose to develop an algorithm and a complete reconfiguration model for wavelengthrouted
optical networks which includes the reconfiguration process and the policy. The reconfiguration
process provides the choices of the reconfiguration operations (e.g., add, delete or re-route
lightpaths) to maintain the high performance of the network in any traffic demand volumes and
patterns while minimally disturbs the current virtual topology. The reconfiguration policy defines
which choice to be selected that returns the optimal expected outcome based on the cost of operation
and the performance reward. We have preliminary experimental results that show that selecting
the choice with the highest immediate outcome does not return the optimal expected outcome in
the long term.
Although the reconfiguration problem is an NP-hard problem and is a trade-off between performance
and number of changes in virtual topology, we can still find the solutions using a multiobjective
evolutionary algorithm with the concept of Pareto Optimal. The algorithm provides a set
of solutions in the Pareto front while the policy picks one of solutions in the Pareto front that gains
the optimal expected outcome. The policy depends on the pattern of traffic. If the future pattern
of traffic can be predicted or estimated, the Markov Decision Process (MDP) can define the policy.
However, the status of network or the MDP's state which effects the Pareto front needs an intensive
study.
Our goal is to develop the theory and algorithms in accordance with realistic traffic demand and
protocol. The model will be the centralized control over the network, which will not be designed
only for the specific performance objective or traffic type but be applicable for various objectives
and traffic types. The development of practical algorithms for solving these problems represent an
important step in allowing reasonable scale implementation of optical networks.
Intellectual Merit of the proposed research rests on the integration between the reconfiguration
process and the policy based on the Pareto optimal concept and MDP that has not yet happened in
the Optical network reconfiguration field. Reconfiguration problems are among the most difficult
in the areas of optical networks since such problems encompass the construction of algorithms
involving the extremely high-speed communication over an optical fiber. The consequence problem
is how or when to perform the reconfiguration process. From the practical application viewpoint,
we want to advance our model to the practical optical networks.
Broader Impacts of the proposed research is expected to be strong since we are proposing
to integrate two disciplines, the evolutionary computing and the stochastic process for the recon-
figuration in the optical networks. We expect that the work will have broad impact in industrial
practices on network provisioning, protection and restoration areas.